Developmental and Learning Sciences: A Multidisciplinary Competition: Five-Year Proposal for the Boston University Conference on Language Development

The National Science Foundation supports the Boston University Conference on Language Development to be held at Boston University each November from 2002 through 2006. The conference is an internationally recognized meeting for researchers in the areas of first and second language acquisition, bilingualism, language disorders, and literacy development. It is attended by 400-500 researchers from around the world. Its presentations are chosen by anonymous peer review, and its proceedings are published by Cascadilla Press. The 2002 keynote speaker is Susan Goldin-Meadow; the 2002 plenary speaker is Bonnie Schwartz. Since 1976, the faculty and students of Boston University's Applied Linguistics Program have organized and run the conference. Dr. Shanley Allen leads this year's team of student and faculty organizers.